2022 Biomineralization GRC and GRS

The GRC on Biomineralization 2022 titled “Bridging scientific disciplines to understand biomineral formation in breadth and depth,” will to bring together early career and established scientists from around the globe with diverse backgrounds and a variety of expertise including, but not limited to biology, physics, geology, chemistry, engineering, environmental sciences, dentistry and medicine. Speakers and poster presenters will share a broad spectrum of state-of-the-art topics to cover genetic, molecular and cellular mechanisms of formation, structure and function of biomineralized tissues. Interactions of biominerals with the environment, impact on health and disease, as well as the translational aspect of biomineralization in tissue engineering will also be covered. The accompanying Gordon Research Seminar (GRS) will emphasize creating new connections between students, postdoctoral fellows and early-career and experienced researchers.